Spinor Bose Condensate and Multi-Component Quantum Gases

The projects proposed address a number of fundamental issues in quantum gases with internal degrees of freedom: general features of quantum spin dynamics, the manifestation of these dynamics in single trap, in optical lattice, and low dimensional environment. These studies are directly related to the experimental projects in many laboratories in US and abroad. Another major effort in this proposal is to study the spinor physics of the newly found 52Cr Bose dipolar condensate. The spinor condensates in these systems will be very different from those in the alkali gases due to the very large spin-dependent interactions in these systems. Because the exceedingly rich physics of this dipolar condensate in the spinor regime, experiments are now underway in Tilman Pfau's group (which discovered the Cr condensate) to reach the spinor regime. Another area of exploration is the spinor physics of large spin Fermi gases such as 40K and 53Cr. All these projects aim at advancing our conceptual understanding of the fundamental properties of quantum gases. They also explore possible new phases.